Tandem Mass Spectrometry for Monitoring Control & Optimization of Bioprocesses

This proposal seeks to use a relatively new and highly versatile analytical technique (Tandem Mass Spectrometry) to separate and identify individual components of complex mixtures in a bioreactor. The proposed methodology also seeks to utilize a capillary membrane interface for sample transport and selective permeation of analytes. Preliminary results using a triple quadrupole instrument show that the proposed methodology has the sensitivity to allow identification of trace amounts of previously unsuspected intermediates in whole (unfiltered) fermentation broths. Sensors for monitoring, controlling and optimizing bioprocesses is a strong need of the biotechnology field and this proposal provides a means of addressing this need. This proposal is also an excellent example of the type of cross-disciplinary project we wish to see in the Engineering Directorate's Biotechnology Program. The Principal Investigators are considered to be well qualified to carry out the proposed research.